Mathematical Sciences: Experimental Mathematics

This REU site award provides support for ten undergraduate researchers in mathematics. The research at this site will be on topics in experimental mathematics in areas such as algebra, analysis, geometry, and topology. The program will run for eight weeks. Graduate students as well as faculty members will be involved in working with the undergraduate project teams.